Mathematical Sciences Computing Research Environments

Guttman 9627804 The Department of Statistics will purchase a server and X- terminals to be networked with it. This network is to be used by faculty and graduate students involved in research and consulting work. The equipment will be used for the following research projects: (i) Sequential Experimental Design in Non-Linear Models (I. Guttman & A. Mallik). (ii) Bayesian Interim Analysis of Clinical Trials (G. D. Papandonatos). (iii) Model Selection Problems (J. Dmochowski). (iv) Planning of Experiments and Rank Tests (M.M. Desu).